Renewal of REU Site in Structural and Geotechnical Engineering at the University of Maine

The goals of this project follow those which were achieved for the REU last year. A realistic and thorough plan is to be implemented which explicitly delineates the careful recruitment plan, a solid management structure, research assignments which match the students interest and capability to complete within the time available, and following plan to promote continual interest in research. All of these elements are fully described in the proposal. Student projects will be in four areas of structural and geotechnical research: soil testing, probabilistic methods, structural testing, and buried pipe line design. Some of the projects are contractions of those begun during the 1987 REU Program. The decade long experience and commitment to excellence in undergraduate education have been enhanced by the REU activity.